Measuring Distortions From the Differential Tax Treatment ofCorporate and Noncorporate Income

The purpose of this project is to analyze the distortions arising from the corporate income tax. In the past attention has been focused on the impact of the corporate income tax on the rate of corporate investment, corporate debt policy, and dividend policy. In contrast, this research focuses on the effects of the tax on the organization structure of the firm, the type and composition of labor compensation, and the location of borrowing by multinational firms. This research is important because it will provide a better understanding concerning the extent to which this tax might effect the performance of the U.S. economy. The project consists of four empirical studies to measure distortions arising from the differential taxation of corporate and noncorporate income. The first study will use a panel data set of individual tax returns to examine tax effects on individual investment in corporate and noncorporate firms. The second study will use a panel data set of unemployment insurance records to measure the effects of taxes on the composition of firm entrants and exits, the relative growth rates of corporate and noncorporate firms, and the frequency of reorganizations of existing firms. The third study will analyze the extent to which corporate entrepreneurs have an incentive to identify their labor income as corporate income in order to avoid personal taxation. IRS tax return data will be used for this analysis. The fourth study will analyze an aspect of the 1984 Tax Reform Act which gave multinational firms an incentive to shift their borrowing into foreign subsidiaries.